Development of Sports Statistics Modules for Introductory Statistics Classes

Mathematical Sciences (21)
This project develops materials for an introductory statistics class from a sports emphasis. The class covers the basic aspects of beginning statistics using examples and datasets from sports. The first introductory course is developed based on baseball. A text is developed which presents topics from data analysis, probability, and inference from a baseball perspective and students learn statistical concepts by working on baseball datasets. In the second stage of the project, a text is written focusing on applications of statistics to sports. By understanding the benefits of statistics in sports settings, the student retain the knowledge of statistical concepts and they are able to apply this knowledge to problems outside the realm of sports.